Postdoctoral Research Fellowship in Plant Biology

9303642 Kitten This is an individual award for the Postdoctoral Research Fellowship in Plant Biology. The applicant received his Ph.D. from University of Texas Health Science Center. His Ph.D. research was in the area of infectious diseases in animal systems. He plans to carry out his postdoctoral fellowship research in the laboratory of Dr. D. Kyle Willis at University of Wisconsin. The proposed research entitled "Overproduction, isolation, and functional analysis of the LemA protein in Pseudomonas syringae" will broaden the training of the Fellow into plant biology in general and plant pathology in particular. ***